Insect Dynamics on Spartina alterniflora: Plant Condition, Natural Enemies and Physical Factors

This is a very exciting proposal by Dr. Strong of Florida State University that takes a thorough, rigorous approach in examining the dynamics of planthoppers on cordgrass. If successful, it could provide the best example to date of how a wide variety of factors interact to generate spatial and temporal patterns in insect populations. Most of the biotic and physical factors which Strong is proposing to examine in relation to planthopper population dynamics have been studied previously but they have generally been studied in isolation. While valuable, studies of isolated factors tell us of potential effects, but do not tell us what we need to know--what is their relative importance in relation to other factors in influencing population dynamics and distribution patterns. Based on an impressive background with the planthopper/cordgrass system, Strong has now developed eloquent techniques and identified the major factors regulating planthopper populations. The research outlined in this proposal could only be productively attempted by someone with Strong's experience and previous research support.